Supporting Model-Based Reasoning in Semiconductor Engineering Instruction: An AI-Guided Immersive Learning Approach

This project aims to serve the national interest by addressing persistent learning challenges in semiconductor engineering arising from the field’s complexity, invisible micro and nanoscale phenomena, and abstract, multidisciplinary concepts, thereby helping attract and retain students in the field. This Level 1 Engaged Student Learning project aims to advance understanding of how Artificial Intelligence (AI) and immersive Extended Reality (XR) environments can support student reasoning and conceptual understanding in engineering education. The project plans to create interactive learning experiences that enable students to visualize semiconductor processes and receive real-time guidance during learning activities, with the potential to broaden participation and strengthen the semiconductor workforce pipeline.

The objectives of the project are to develop and study an integrated AI-XR instructional architecture that supports model-based reasoning in undergraduate semiconductor engineering education. The project plans to create immersive XR modules spanning the semiconductor lifecycle while using AI as a dynamic scaffolding agent to guide students. Using mixed-methods assessment, the project aims to investigate how AI-guided immersive learning influences students’ reasoning processes, conceptual understanding, and knowledge transfer. Findings and reusable instructional resources will be disseminated through publications and are expected to contribute new knowledge about how AI can orchestrate reasoning in immersive STEM learning environments and broaden participation in the semiconductor engineering field. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.